Rocky Mountain Partial Differential Equations Conference

This award provides funding to help defray the expenses of participants in the "Rocky Mountain Partial Differential Equations Conference" that will be held May 18 and 19, 2017, on the campus of Brigham Young University. For additional information see the conference website: https://math.byu.edu/pde/

This regional conference will focus on a range of topics, both pure and applied, within the field of partial differential equations (PDE). One purpose of the conference is to create a network of PDE specialists in the Rocky Mountain region that will promote research collaborations. The program will feature two plenary speakers (Edriss Titi, Daniela De Silva), each of whom will deliver an hour-long lecture. The program allows ample opportunity for junior mathematicians to present their work.